Universal Testing Machine for Materials Testing Laboratory

This project introduces computer assisted testing of materials into the Civil and Mechanical Engineering curricula at this institution. The laboratory that supports this project includes a Tinius Olsen Universal Testing Machine with an integrated microcomputer. This equipment not only permits students to carry on many experiments in a given lab period, but, because of the automated data acquisition and display capabilities of the equipment, students gain a greater intuitive feel for the behavior of materials. This award is being matched by an equal sum from the grantee.